A Regional Scale High-Performance Reactive Transport Model

0202077 Rabideau This research involves adding reactive transport modeling to a grid-free flow model, and the decoupling of ground water flow, advection, and dispersion. The overall approach is original using modular code design. A modular grid-free ground water model would be able to handle problems with multiple spatial and temporal scales. It should eliminate or lessen computational problems that exist with current finite-element/finite-difference codes. The code will also take advantage of parallel processing architecture, which will help in long-term simulations. The proposal presents a well-organized set of work, and builds on work currently in progress. The model testing and benchmarking will be done on a problem that involves multiple scales. The PIs have experience in coding these types of algorithms, and experience in sorption and vertical barriers.